A Philosophical Examination of Cross-Disciplinary Research on Cellular Respiration: 1940-1965

Dr. Bechtel is examining research on the function of the mitochondrion in cellular respiration between 1940 and 1965 in order to address two sets of philosophical issues: (1) the nature of the interactions between researchers trained in different disciplines (biochemistry and cell biology) that culminated in the integration of morphological and functional perspectives in a mechanistic theory of the role of the mitochondrion in cellular respiration and (2) the role played by new research techniques (electron microscopy and cell fractionation) in opening this domain of inquiry and in facilitating interactions between cell biologists and biochemists. Dr. Bechtel is focusing on two stages in the history of investigations into the mitochondrion's role in cellular respiration. During the first period, he is concentrating on the cell biology investigations carried out at the Rockefeller Institute where the techniques of cell fractionation and electron microscopy were developed and employed to identify the mitochondrion as the locus of cell respiration and to discover its internal structure. In the second period, he will examine the endeavors of four different biochemists who then made use of these techniques in their attempts to explain how mitochondria figure in cellular respiration and oxidative phosphorylation in particular.